Collaborative Research: SI2-SSI: Open Source Support for Massively Parallel, Generic Finite Element Methods

Partial differential equations are used in a wide variety of applications as
mathematical models. Their numerical solution is, consequently, of prime
importance for the accurate simulation and optimization of processes in the
sciences, engineering, and beyond.
The last decade saw the emergence of large and successful libraries that
support such applications. While these libraries provide most of what such
codes need for small-scale computations, many realistic applications yield
problems of hundreds of millions or billions of unknowns and require clusters
with thousands of processor cores, but there is currently little generic
support for such problems, limiting access to the many large publicly
supported computing facilities to experts in computational science and
excluding scientists from many fields for whom computational simulation would
be a useful tool. This project intends to build the software infrastructure that will allow a
wide cross section of scientists to utilize these large resources.

This project intends to support the software infrastructure for the
large-scale solution of partial differential equations on massively parallel
computational resources in a generic way. It will build on two of the most
successful libraries for scientific computing, the finite element library
deal.II, and Trilinos that provides the parallel linear algebra capabilities
for the former. Specifically, we will: (i) Make support for massively parallel
computations ubiquitous in deal.II; (ii) Research and develop seamless support
for problems with billions of unknowns in both libraries and improve the
interaction between the two; (iii) Exploit intra-node parallelism on today's
clusters; (iv) Ensure the applicability of our work on a broad basis by
implementing two real-world applications.
Both deal.II and Trilinos have large, active and diverse developer and user
communities, and this project will actively engage these communities through
user meetings, short courses, regularly taught classes, mailing lists, and
direct contact in focused projects.